POWRE: Nonrenormalization Theorems

This POWRE award supports a research project in Matrix theory. The point of departure of the work is that, in the low energy limit, the amplitudes computed from the Matrix theory should agree with those computed from supergravity. All the perturbative tests have so far shown agreement, and the few nonrenormalization theorems proven to date extend the agreement beyond the perturbative level. A better understanding of the existence of nonrenormalization theorems will clarify the correspondence between Matrix theory and supergravity for finite N. This award gives the PI an opportunity to focus heavily on her research at a time when family responsibilities dictate that she either move forward with her work or forego a scientific career completely. The award is funded by the NSF POWRE program, the Office of Multidisciplinary Activities in the MPS Directorate, and the Physics Division.